Molecular Basis of Potassium Channel Function in the Nervous System

9722378 Robertson Ion channels are proteins that allow the flow of ions across cell membranes. The movement of the charged ions produces electrical activity that is the basis of communication in the brain. The long-range goal of this research is to understand how the Eag family of potassium channels contribute to electrical signaling in the nervous system. Although these channels can be detected biochemically, their functional properties and physiological roles are unknown. The specific aims of the project include a combined electrophysiological and pharmacological approach to characterize currents produced by these channels in brain tissue slice. A simpler "expression system" containing pure populations of these channels will be used to further characterize factors that control the opening and closing, or "gating," of the channels. These research activities involve undergraduates in an integrated, supervised program in which students cooperate in the design, execution and analysis of experiments. They will report their findings at scientific meetings and in manuscripts for publication, thus developing writing and communication skills in a scientific setting. The educational goal of the project is to provide these students the opportunity for scientific discovery in an active learning paradigm not typically available to undergraduates, and to develop the skills and self- confidence necessary to pursue careers in science.